PDS: The Illinois Aggressive Cache-Only Memory Architecture Multiprocessor- (I-ACOMA)

The objective of this work is the point design study of the Illinois Aggressive Cache-Only Memory Architecture (I-ACOMA) multiprocessor, a novel distributed shared-memory, multiprocessor (DSM) that delivers petaflop-scale performance without surrendering programmability. I-ACOMA is designed to address some of the most important challenges that architects will face in the next two decades, namely the widening gap between the speed of multi-Ghz processors and the much slower cache hierarchy, memory and network subsystems, the increasing under-utilization of the large number of transistors that can be embedded on a processor chip, and the disappointingly poor machine utilization in many key applications like sparse computations and database workloads. To address these issues, I-ACOMA includes a very aggressive memory hierarchy, multithreaded superscalar processors, and architectural support for sparse computations and databases. On the software side, the code running on I-ACOMA is generated by a compiler that automatically parallelizes Fortran 90 programs. The compiler exposes both loop- and instruction-level parallelism. In addition, it generates data forward directives. Finally, on the application side, while I-ACOMA is a general-purpose machine, it will focus on two sets of grand challenge applications, namely sparse computations and database applications.